Seismic Investigation of Solar Convection

Helioseismic imaging has begun to yield unique diagnostic information about the hidden subsurface layers of the Sun. This effort will pioneer the development of a new approach to seismic imaging of the Sun, in which an adaptable physical model of the subsurface structure of the solar convection zone plays a fundamental part. This so-called direct modeling approach will be used to systematically probe the three-dimensional structure of the turbulent convection zone. Long sequences of SOHO/MDI full-disk Dopplergrams will be used to detect turbulent convection as far into the Sun as sensitivity permits. The investigation will also assess the comparative advantages of the NSF supported GONG+ network. The focus of this effort will be on supergranular-scale flows (30 Mm), which will be characterized statistically in terms of velocity correlation functions.